Acoustic Structure of Highly Porous Fibrous Materials

The research focuses on the acoustical structure of porous fibrous layers and the optimum design of such layers for engineering purposes. Computer-aided design procedures to facilitate the optimization procedures are developed. These analytical and design studies are quite relevant research topics since porous materials are of key importance to the control of noise generated by virtually all high technology devices used in modern society.